A Facility for Research and Education at Wachapreague, Virginia

The Caribbean Marine Research Center (CMRC) is one of six National Undersea Research Centers. CMRC's marine field station on Lee Stocking Island (LSI) in the Exuma Cays, Bahamas comprises 28 buildings, a 915-meter airstrip, nine research vessels, wet and dry submersibles, and recompression chamber and an underwater habitat. The station affords access to a pristine marine environment with a diverse array of tropical habitats including shallow and deep coral reefs, grassbeds, sand flats, mangroves, submerged carbonate terraces, subsea caves, blue holes, tidal channels and stromatolites, a unique bio-geological feature. During 1993, 131 visiting scientists and students conducted research in the fields of benthic ecology, invertebrate biology, fisheries ecology, oceanography, coral reef ecology, paleo-oceanography, macroalgal ecology, aquaculture, global climate change, coral bleaching and marine geology. In addition, a limited number of field courses and workshops were held at LSI. However, the station is hindered by a paucity of accommodations for visiting scientists, and the lack of a suitable lecture and workshop facility, which prevents CMRC from meeting numerous requests to conduct field courses, workshops and research. The proposed partnership between CMRC, The College of William & Mary (W&M), and NSF would significantly enhanced the utility of one of the most productivity marine field stations in the Caribbean. Specifically this project will provide for the construction of a dormitory and lecture/workshop building at LSI. Key contributions by CMRC include property for the facility, support services, and administrative framework for coordination of activities, and maintenance of the building over the facility's lifetime.